Penrose Conference: Fine-Grained Fault Rocks; September, 1995; Leavenworth, Washington

9418255 van der Pluijm This action provides partial support for a Penrose Conference titled "Fine-grained fault rocks" to be held September 1995 in Leavenworth, Washington.